Metal Colloids and Thin Films

This Science in Developing Countries award will support the collaboration of Kenneth Klabunde of Kansas State University and Galo Cardenas- Trivino of the University of Conception, Chile. The project aims to (1) prepare M-solvent colloids with Cu, Ag, and Sn, and with monomers such as styrene and methylmethacrylate; (2) characterize colloidal particles by electrophoresis, TEM, SEM, FTIR, Mossbauer, and SRS; and (3) characterize metallic films formed from the colloids by TGA, DSC, microanalyses, and resistivity measurements. The researchers will use a new method for preparing nonaqueous colloidal metal particles, using metal evaporation and solvation of atoms in excess cold organic solvents. The mobile metal atoms cluster upon warming. The forming particles stop growing due to solvation and electrostatic repulsion. Various metals have been shown to form stable colloidal solutions. The major interest in these new colloids is in their use as metallic film precursors. The researchers aim to develop them for chemical liquid (rather than vapor) deposition of films. With a recent patent, much industrial interest has developed. This joint project is expected to facilitate progress in metal- colloid, metal film work. The U.S. side has expertise in colloid chemistry and state-of-the-art equipment for preparing and analyzing colloidal solutions and metal films. The Chilean side has expertise in polymer characterization and necessary TGA, DSC, and TEM/SEM facilities, which the U.S. side lacks.